COLLABORTIVE RESEARCH: Effects of UV-B Radiation on Amphibian Behavior

Global climate changes, from natural and human-induced forces may have an impact on how animals behave. The PIs will investigate the effects of one agent associated with atmospheric global change, ultraviolet-B radiation, on amphibian behavior. It is known that the eggs and developing embryos of some species are damaged by ambient levels of UV-B radiation that may be increasing due to ozone depletion. The objectives of this research address how UV-B radiation may affect key behaviors that, if altered, may have significant life history consequences. Thus, behaviors associated with avoiding UV-B along with UV-B affects on mating, egg-laying, aggregation, activity, and predator-prey behavior will be studied. The PIs will use both laboratory and field experiments to manipulate UV-B exposure and then obserbe consequent changes in behavior. Few experimental studies have attempted to investigate how specific environmental stresses, such as UV-B affect the behavior of an animal. The research will provide basic biological information on how animals may respond to sub-lethal exposures of UV-B